A Framework for Next-Generation Scheduling and Task Management for Extreme-Scale Computing

A Framework for Next-generation Scheduling and Task Management
for Extreme-scale Computing

Kang G. Shin and Abhijit Bose
The University of Michigan

The objective of this research project is to develop efficient
algorithms and robust software for scheduling and resource management in
support of extreme-scale computing. Such computations may involve tens
of thousands of processors configured as a high-end computing system.
More efficient scheduling and resource management systems than those
currently used are needed to address scalability and fault-tolerance for
such large systems. The same argument also holds for the increasingly
complex requirements of many emerging applications. The
current-generation schedulers primarily manage a cluster of CPUs that
are configured statically for an application. An application is
allocated a fixed number of processors or nodes (for SMP systems), and
is not expected to modify its resource requirement during the execution.
This may result in lower resource utilization. Furthermore, most of the
current schedulers do not provide transparent fault-tolerance to the
running workload. One or more processor/node failures often terminate
the currently-executing task on these processors, resulting in wasted
cycles. Fault-tolerant scheduling will be critical to the scalability of
future HEC systems to an extremely large number of processors. The
increasing usage of high-end systems for both computation- and
data-intensive applications requires that future scheduling systems must
address the problem of co-scheduling CPUs, I/O and network resources
when mapping tasks to appropriate resources. In some HEC architectures,
the placement of processes has an effect on the overall performance of
the application due to the underlying interconnection topology. Both
co-scheduling and workload-aware scheduling will be important for future
high-end computing systems.

An integrated software framework will be developed for scheduling
and resource management for extreme-scale computing systems that
provides the following capabilities: (i) on-line workload
characterization, (ii) predictive scheduling based on time-series
modeling and forecasting of resource utilization and queued workload,
(iii) transparent fault-tolerant scheduling of applications that are
interrupted by one or more faults, and (iv) efficient heuristic and
evolutionary algorithms that consider the workload and resource
characteristics and forecasts as part of the scheduling decision.
This work represents a mix of scheduling theory and robust
software development. These algorithms and the software framework in
a production HEC environment at the Center
for Advanced Computing (CAC) at the University of Michigan. The CAC HEC
facility provides a testbed consisting of over 1400 CPUs representing
multiple processor families (AMD Athlons, Opterons, Apple Xserve/G5) and
several interconnection systems such as Gigabit Ethernet and Myrinet.

The intellectual merit of this research will be to advance the
state-of-the-art in scheduling and resource management for HEC systems.
By implementing and deploying the proposed framework at CAC, we will be
able to collect realistic workload traces from a diverse array of
end-users and applications. This research will serve as a catalyst for
the development of robust fault-tolerant scheduling algorithms and their
implementation software for such systems. We specifically address the
scalability of fault-tolerance mechanisms such as checkpointing/restart
and I/O that can scale across thousands of processors. Furthermore, our
proposed integration of research, outreach and education activities will
make broader impacts to other HEC centers and the scheduling research
community. The framework developed as part of this project and our
research results will be disseminated to industry and academia through
open-source software and high-quality publications.